Conference: 2005 IEEE AP-S International Symposium, Student Travel Grants and Student Paper Competition Award, Summer 2005 in Washington, DC

0505844
LANG

This proposal requests funds to support travel costs for students attending and presenting at the 2005 conference and provides awards for the top three selections for the AP-S student paper competition.

The IEEE AP-S / URSI conference is the premier conference devoted to theoretical and experimental advances in antennas and electromagnetic wave propagation.

Student travel support will be granted to those who are presenting and have financial need.